Computation of Nearly Singular Integrals with Applications to Fluid Dynamics

0102356
Beale

The proposed work is concerned with the development of improved
methods for computing singular or nearly singular integrals, and with
applications to numerical methods for simulating fluid flow with moving
boundaries. In many scientific problems, quantities of interest can be
written in terms of integrals such as a double layer potential on a
boundary. When such an integral is evaluated near the boundary, usual
quadrature rules are inaccurate because of large derivatives in the
integrand. It is desirable to calculate such values in a way that is simple
and efficient, without requiring a special choice of quadrature points. The
present approach uses regularization of the singularity and a standard
quadrature rule, followed by local corrections derived from asymptotic
analysis. This technique will be used to design an alternate version of the
immersed boundary method of C. Peskin, a computational method which
has been used to model various biological processes. In this method
viscous, incompressible fluid is influenced by a membrane or interface
which exerts a force on the fluid. In two dimensions, the force can be
expressed in terms of nearly singular integrals to which the proposed
approach can be applied. It is hoped that this modification will extend the
usefulness of the immersed boundary method in realistic applications.
Application may also be made to methods for computing flow with
moving boundaries separating different fluids. The technique for nearly
singular integrals will be extended to surface integrals in three-space,
generalizing work already done for marker points on surfaces. Related
work will concern interfaces in inviscid, potential flow using improved
regularizations of boundary integrals.

Many scientific processes involve moving boundaries, for example, the
boundary of a drop of one fluid moving through another, or a membrane in
living tissue. Numerical models of such processes encounter special
difficulties, since it is simplest to compute quantities at a set of points
which are regularly spaced and unchanging. There are presently several
numerical approaches which avoid changing fundamentally the way the
region is approximated at each new time. In some cases important
quantities can be written as integrals over boundaries. These integrals
arise as solutions of differential equations and are usually singular, or
nearly singular; that is, large values appear, representing the strong
interaction of nearby points, as in the inverse square law of gravity.
Special techniques are needed to calculate such integrals accurately and
efficiently. This proposal is concerned with the development and
application of methods of this type. The use of integral representations to
modify the design of existing methods for computing fluid motion with
moving boundaries might improve the ability of these numerical methods
to make reliable predictions.